Workshop Proposal: Student Research Workshop at AMTA-2010

NSF is providing partial financial support for a Student Research Workshop
at the AMTA-2010 conference in Denver, Colorado. The Association for Machine
Translation in the Americas (AMTA) is a non-profit professional organization
in the area of Machine Translation (MT) in the US and the American continent.
The main mission of AMTA is to facilitate and promote the exchange of
knowledge and information between the communities of researchers, developers
and users of Machine Translation and related translation technologies. In its
effort to foster the professional growth of the next generation of MT
researchers, AMTA-2010 is featuring a Student Research Workshop, embedded
as an integral part of the research program at the conference. Students at
all levels of study (undergraduate, graduate and post-graduate) are invited to
submit papers describing their research work. NSF is providing funding to
subsidize travel, conference and accommodation expenses for up to 10 students
that have been selected to present their research work at the workshop.

The AMTA-2010 Student Research Workshop will greatly facilitate professional
growth for the brightest young researchers in the field of MT, in the early
stages of their professional career. The workshop will contribute to the
professional development of a skilled and diverse workforce in the area of
Machine Translation and computational processing of natural language. MT and
other language processing applications are becoming vital technologies in the
global information age. Strength in these areas is crucial to American
competitiveness in the global economy of the 21st century.